Gallaudet Summer Science Program

The Gallaudet University will initiate a four-week, residential, multidisciplinary Young Scholars project for 18 students in grades 9-11. This proposal is for the renewal of a grant for the Gallaudet Summer Science Program for deaf students with high ability/potential in science. Students work on biology, chemistry, and physics projects under the supervision of deaf and hearing professors and instructors. Assigned to one of three groups, each group rotates through all three sciences. Using water as a theme, students see how each science contributes to the study of water in a different way, and at the same time see how the sciences are related to each other.